Training Workshops on the Ecology and Evolution of Infectious Diseases

Emerging infectious diseases present a broad challenge to humans, other animals and plants, in both human-dominated and natural communities. Anticipating effects of emerging diseases will require synthesis of ecological, epidemiological, genetic, and evolutionary data, and solutions must address issues such as pandemics, species jumps, drug resistance, and roles of immunity and vaccination. The leading edge of infectious disease research will move with development of mathematical models and the enormous capacity of genome projects to gather data. This demands a step change in training the next generation of scientists, by integrating quantitative analysis from ecology and evolution with more traditional analyses in epidemiology and biomedicine. This project will fund workshops to train the next generation of infectious disease researchers in quantitative analyses, to form interdisciplinary teams to synthesize the growing mountain of data, and to link research in ecology, evolution, genomics, epidemiology, microbiology/parasitology, and immunology. The project will use a flexible curriculum integrating state-of-the-art modeling approaches with analysis of data sets provided by workshop participants.

Broader impacts include bringing together students and instructors with diverse backgrounds, and training students from underrepresented groups by targeted recruiting. Collaborative projects arising from the training will lead to advances in public health and epidemiology, including understanding of pathogen emergence in the face of changing human populations, drug therapies, vaccination strategies, and global change.